Problems Related to Conformal and CR Geometry

ABSTRACT DMS - 0204480. PI: C. Robin Graham

This project will study conformal and CR geometry. Algebraic, analytic,
and geometric aspects will be considered via the introduction of metrics in
higher dimensions which are associated to the original conformal or CR
geometry. Understanding the higher dimensional spaces gives rise to problems
of independent interest. Motivation is provided by the AdS/CFT
correspondence in physics.

Conformal geometry is the study of properties of space which are unchanged
by transformations which preserve angles but not necessarily lengths.
Conformal mapping and geometry has found numerous applications to practical
problems for many years, such as the design of airplane wings. Conformal
geometry in higher dimensions has recently been the object of much interest
in so-called holographic correspondences in physics. This project will
study properties of the underlying geometric spaces, partially motivated by
the interaction with the physical theories.